Support Services for Postdoctoral Fellowships in BIR (Task Order #49 for Contract DGC-9216105)

9406881 Linsky This contract is for initial data entry services in three Postdoctoral fellowship programs operated by the Biological Sciences Directorate. It provides for capturing the initial data related to applications to the Plant postdoctoral Fellowships, Minority Postdoctoral Fellowships, and Molecular Evolution Postdoctoral Fellowships programs. The number of applications is estimated to total about 250. Data will be entered in the NSF mainframe computer and the file jackets will be assembled using the computer-generated forms. ***